The NLANR Distributed Applications Support Team: Enabling Distributed Research in Middleware-Based Grid Environments

The NLANR Distributed Applications Support Team is focused on supporting
researchers and research communities in the use of resources embedded within
high-performance networks and the middleware-based Grid environments that
depend on those networks. This proposal sets forth a plan for the next stage
for this leading edge team, building on previous efforts and assisting in
the maturing of user communities in the use of distributed resources
connected by advanced networks. This includes the development and extension
of end-user and network engineer oriented tools for both high-bandwidth
optical networks and low-bandwidth wireless networks, which will be the
critical network components for advanced applications in the next several
decades. Support functions will evolve from a focus on specific
projects to being a community support organization fostering the
development, support, and growth of a global community of network engineers
and network support staff working to advance networking in support of global
science. Outreach efforts will be expanded in raising awareness
in new and emerging communities, such as those associated with major NSF MRE
funding, of the dependencies these projects have with respect to networking
technologies.